National Experimental Platform for Hybrid & Embedded Systems Technology (NEPHEST)

The objective is the joint effort of the National Science Foundation Directorate for Computer and Information Science and Engineering (CISE) and the Defense Advanced Research Projects Agency (DARPA) Information Technology Office (ITO) to establish a National Experimental Platform for Hybrid and Embedded Systems Technology (NEPHEST).

The Goal of NEPHEST is to provide a common experimental infrastructure for hybrid and embedded systems research. NEPHEST will include the following major components:

1. An open framework for integrating hardware and software components of both laboratory and large-scale experiments for hybrid and embedded systems research.
2. Reusable hardware and software components and tools for experimental systems.
3. An evolving suite of challenge problems, reference solutions, and baselines for validation and verification of technologies.
4. A National Repository of components, tools, verification results and documents.